A History of Objectivity in Natural Sciences

"Objectivity" has surely always been the goal of scientific research. Yet recent history, philosophy, and sociology of science studies challenge the very foundations of the assertions of objectivity in science. Professor Daston, under this grant, is examining not the contemporary debate about objectivity in science, but the historical development of our modern view of objectivity. She is preparing an examination of the history of the ideals and practices of objectivity in the natural sciences from the rise of modern science in the 17th century to about 1925 with the development of quantum theory with its "uncertainty principle." Her study will trace the historical transformation of scientific objectivity, revealing the range of alternative meanings it has taken on since 1600. Each of these alternatives is rooted in the daily workings of science--experimental techniques, metaphysical assumptions about determinism and variability in nature, patterns of professional sociability, theoretically grounded rules of evidence, division of scientific labor, a carefully cultivated sensibility that spans impartiality to self-effacement. Not only the attitudes but also the objects of objectivity evolve, creating sharply contrasting prototypes of what counts as a fact in science. The concept and conduct of objectivity are specific to discipline as well as to historical period: astronomy, natural history, the physics of electricity, and experimental physiology all evolved distinctive brands of objectivity in the 18th and 19th centuries. By showing that objectivity itself has a history, Professor Daston hopes to illuminate our own confused usage of the term which refers to metaphysics, methods, and morals.